X-Ray Crystallography of PvuII Endonuclease and Its Complexes with DNA

Dr. Anderson proposes to use X-ray crystallography to determine the three-dimensional structure of the restriction endonuclease R-PvuII from two crystal forms of the free enzyme already in hand that diffract X-rays to 2.5 A. He will collect data, and then screen a number of heavy atom reagents to find several isomorphous derivative crystals. Derivative data will be used in multiple isomorphous replacement or with other published techniques to calculate phases and produce an initial electron density map. Conventional methods will be used to fit a model of R-PvuII into the map and to refine the structure. Cocrystals of R-Pvull will be grown with oligodeoxynucleotides carrying its recognition site, to solve the structure of the protein-DNA complex. Dr. Anderson will crystallize and determine the structure of catalytic and binding mutants of R-PvuII, provided by the collaborators, both in the presence and the absence of DNA. The proposed work will permit a detailed study of the structure-function relationship of R-PvuII, and will contribute significantly to the understanding of R-PvuII, of restriction enzymes, and of protein-DNA interactions.